An Integrated Approach to Scalable Content Delivery over the Internet

This project will investigate the problem of providing better access
to web information and services to a rapidly growing user population.
The goal is to take the next step toward scalability by performing a
systematic study of architecture, problems, and performance issues
in content distribution networks. New ways to reduce response time
and the load imposed on the network will be explored. An integrated
approach is adopted to study the synergetic effect of different
components in content distribution systems. Specifically the research
will include developing dynamic content delivery techniques, designing
application-level multicast delivery protocols, developing dynamic
server selection algorithms, and studying dynamic replica placement
methods.